The Institute of American Indian Arts Internet Connection

9521790 Schwartz This project connects the Institute of American Indian Arts to the Internet over a 56Kbps line. Faculty and students at the Institute benefit from access to the resources of the Internet, including libraries and art collections. In addition, they are able to communicate and collaborate with colleagues at other institutions in pursuit of artistic and educational projects. The award provides partial support of the project for two years.